Gene-Specific Nuclear mRNP Assembly and Quality Control

The function of any cell in humans, plants or other organisms requires information encoded in genes within DNA. Genes are found in one area of a cell called the nucleus, and the information within genes must be copied into an intermediate molecule (RNA) to direct the production of proteins in other parts of the cell. Proteins do most of the work that allows cells to live and function under changing conditions. This research project is aimed at deciphering how the information held in genes is transported in the cell to make proteins when and where they are needed. Understanding how this process works is central to knowing how any organism functions and adapts to change. The resulting knowledge will have potential to improve biomanufacturing, including the use of cell systems to make important industrial products. The project will also provide students with skills training and scientific research experiences for a future in STEM to benefit society.

Messenger RNA (mRNA) is a centerpiece of the gene expression pathway that, as a functional unit, is bound by proteins in a ribonucleoprotein particle (RNP). This research focuses on the assembly of nuclear messenger (m)RNPs. It is known that the protein components of mRNPs are dynamic, and that gene-specific mRNPs have different processing and nuclear export efficiencies; however, it is not yet known what protein architectures define export-competent mRNPs or how these are altered when the export process is challenged. Building on previous NSF-supported research in S. cerevisiae, this project aims to define how nuclear mRNP assembly is tuned to maintain gene expression fidelity in response to three challenges: R-loop–prone transcription, mRNA export disruption, and failures in pre-mRNA splicing. The work will integrate gene-specific measurements of RBP stoichiometry/co-occupancy, time-resolved recruitment assays at transcription sites, and RNA-directed proximity labeling, coupled to targeted perturbations and multi-omics readouts, with the overarching goal of developing a quantitative framework that describes mRNP compositional dynamics in regulated gene expression.